Student Support for 1994 DAMOP Meeting

9412728 Gallagher This program supports graduate student attendance at the 1994 annual meeting of the Division of Atomic, Molecular and Optical Physics of the American Physical Society, held in Crystal City, Virginia. Over 450 abstracts have been recieved for the meeting and it represents the principal annual gathering of physicists in the field of Atomic, Molecular and Optical Physics. Attendance at the meeting is valuable to students and contributes to the vitality of the meeting. ***